Materials Research Laboratory

The Materials Research Laboratory (MRL) at Cornell University supports a broad range of interactive and interdisciplinary materials research in six primary thrust areas. The ceramics program which began in 1986 and developed rapidly over the succeeding two years is now focussed on research in silicate ceramics with a strong emphasis on synthesis, processing and properties of these materials. The name of the mechanical properties thrust has been changed to micromechanics of interfaces and composites to reflect its evolution from work on the strength and failure modes of metals towards research on micromechanical techniques and the properties of polymers and composites. The optical phenomena thrust pursues the development of pulsed laser spectroscopy and its application to the study of solids. The MRL supports the operation of the microkelvin laboratory at Cornell; this includes a millikelvin research station as well as a microkelvin facility. The low temperature group uses the microkelvin laboratory for research on fundamental excitations and transport mechanisms in quantum fluids, and on collective and single particle electron transport in condensed matter. The novel phases and structures thrust combines theoretical and experimental investigations of the microstructure of liquids and unusual structures and phases in solids. Finally, the surfaces and interfaces thrust brings together investigators with common interests in employing electron microscopy and synchrotron radiation to study surface structure and transitions, surface kinetics, and the structure, properties and control of interfaces. The MRL also supports the development, operation and maintenance of major central materials research facilities and provides seed funds for new faculty and high-risk research related to its overall program. The program currently involves 52 faculty members, 8 postdoctoral research associates, 14 other technical and scientific professionals, 36 graduate students, and 10 students in "Research Experience for Undergraduates." The Cornell MRL is under the direction of Professor Robert H. Silsbee.